Mathematical Sciences: 1992 Spring Topology Conference; April 2-4, 1992, Charlotte, NC

The Department of Mathematics at the University of North Carolina at Charlotte will host the 1992 Spring Topology Conference from April 2-4, 1992. The following are scheduled to give one-hour addresses: W.P. Thurston, S.C. Ferry, D.L. Sumners, L.G. Oversteegen, J.D. Stasheff, S.E. Newhouse, Jan van Mill, F.X. Connolly, F.A. Raymond, Mike Reed, and Dmitri Shakmatov. There will be an additional dozen half-hour talks and numerous fifteen-minute talks. Attendance in excess of two hundred is expected. The series of conferences of which this is the latest member have become important annual events for topologisis, particularly, but not exclusively (as the above roster indicates), those in general topology, point-set topology and continua theory. The proceedings will be published in Topology Proceedings, a refereed research journal published by Auburn University. The external conference advisory committee consists of Morton Brown (University of Michigan), Peter J. Nyikos (University of South Carolina), Mary Ellen Rudin (University of Wisconsin), and Richard B. Sher (University of North Carolina at Greensboro). A novel aspect of this year's conference is the one-day conference on issues in mathematical education to be held April 1, the day immediately before the regular sessions begin. This will capitalize on William Thurston's presence and his interest in such issues. Other more usual aspects of the conference arrangements seem equally well thought out.